Cytoplasmic and Nuclear Cap-binding Proteins

Cytoplasmic and Nuclear Cap-binding Proteins: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the propsective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project involves two interrelated studies. One is to determine which amino acid residues are present in the active site of cap-binding protein (CBP). The second project will be to devise assays for, and identify an activity in the cell nucleus which recognizes the cap during the process of mRNA splicing. The project is under the direction of Professor Robert E. Rhoades, Department of Biochemistry, University of Kentucky, Kinkead Hall, East Wing, Lexington, KY 40506-0571, U.S.A., and professor Ernst Kuechler, Institute for Biochemistry, University of Vienna, A-1090 Wien IX, Wahringerstrasse 17, Vienna, Austria. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.